Reflexion Models: Bridging the Gap Between Source and High-Level Models

Given an existing software system and a task to accomplish, software engineers decide whether and how to proceed based on experience, judgment, and system-specific knowledge. For even modest-sized software systems, there is a substantial risk of making poor decisions because it is difficult (if not impossible) for software engineers to maintain adequate knowledge of the source. To manage this risk, engineers often use high-level models to focus on particular aspects of the system relevant to the task. These models help the engineer reduce risk only if they are sufficiently accurate representations of the actual system. This research investigates an approach that may help engineers determine whether their task-specific models are good enough to make informed decisions. An engineer defines a high-level structural model appropriate for the task at hand and also specifies how the model maps to the source. A tool then computes a reflexion model that shows the engineer where the high-level model is consistent with and differs from the source. Analyzing the reflexion model and applying personal experience and judgment, an engineer can then assess the risk of proceeding with the task. In some cases, especially when there are unexpected inconsistencies between the model and the source, computation of additional reflexion models may be needed before an informed decision can be made. This project concentrates on two activities intended to determine whether reflexion models genuinely help improve our ability to effectively engineer software. The first activity focuses on specific enabling technical problems related to reflexion models. The second activity consists of case studies with industrial partners. Kevin J. Sullivan, University of Virginia participates through a research subcontract.